Spectroscopy of Multiply-Charged Transition Metal Ions Clustered with Solvent

Lynmarie Posey of Vanderbilt University is supported by the Experimental Physical Chemistry Program to study the gas-phase spectroscopy of doubly-charged transition metal (TM) ions clustered with solvent. Coordinated doubly-charged TM ions are quite common in the condensed phase, but not in the gas phase, since the second ionization potential (IP) of the metal is greater than the ligand IP, and the metal ion repels the resulting positive ligand. Electrospray ionization (ESI) has been used to transfer the clustered doubly-valent ion from the condensed to the gas phase, without reduction of the metal. She will combine ESI and laser spectroscopy to study (a) the electronic absorption spectroscopy of the neutral solvent to assess the electronic or structural perturbations resulting from coordination or electrostatic binding; (b) change in the lowest energy ligand-to-metal charge transfer band as a function of the number of solvent molecules; (c) d-d transitions. Systems to be investigated are first row TM ions clustered with various neutral solvent molecules which differ in their basicity, polarity, steric bulk and vibrational structure. Most of the interesting chemistry involving transition metals occurs in the condensed phase yet the analytical tools providing the most precise information are often gas-phase techniques. It is clear then that one must ensure that the gas-phase system and condensed phase system are as similar as possible. The electrospray ionization technique will allow transfer of the chemically interesting solution phase species to the gas phase where high resolution laser spectroscopy can be brought to bear to provide extremely detailed information on the structure of the divalent transition metal ions.